Research Program in Intermediate Energy Physics

Experiments in meson spectroscopy test critical aspects of the standard
theory of the strong nuclear force. Although they only live for a short
time before they decay, mesons provide a unique laboratory for the study
of the strong force because they are the simplest quark configuration,
just a one quark and one antiquark. The GlueX experiment is a major new
initiative being undertaken at Jefferson Lab in Newport News, Virginia
using polarized photons from the CEBAF electron accelerator to search
for a new class of excitations known as exotic mesons. Although exotics
were predicted based upon the standard theory over 20 years ago,
conclusive experimental evidence for their existence has not yet been
established. The P.I. is a member of the governing board of the GlueX
experiment and has specific responsibility in the design and
construction of the polarized photon source. A preliminary step towards
the larger goals of GlueX was the Radphi experiment was constructed
study the decays of a known meson, the phi(1020). The phi itself is not
exotic, but some evidence pointed to the possible exotic nature of two
other mesons at around the same mass, the a0(980) and the f0(980).
Radiative decays of the phi to these scalars provide an important test
of this hypothesis. The experiment collected its data during a 60-day
run in summer 2000, and is in the final stages of data analysis. The
P.I. is also involved in the Qweak experiment at Jefferson Lab, which
undertakes a precise measurement of the weak charge of the proton as a
search for physics beyond the Standard Model. In this project he has
shared responsibility for the Compton-backscatter electron polarimeter.